A Control-Theoretical Approach to Performance Guarantees in Performance-Critical Systems

Many important applications must provide guaranteed real-time
performance in spite of uncertain workloads, highly varying
computation times for tasks, and with a large number of
interacting sites. Examples of such applications include
smart spaces, financial markets on the Internet, collections
of factories supporting agile manufacturing, and high-tech
battlefield coordination. The objective of this research is
to develop a software-oriented theory and practice of feedback
control that will provide aggregate performance guarantees for
these types of systems. Methods to embed such controllers in
the operating systems of these types of applications is
investigated. The ultimate vision of this research is that
software designers will be able to model parts of software
systems and use those models to develop software control
algorithms based on a theory of feedback control.
This work establishes a scientific basis upon which to design
and analyze the aggregate behavior of large systems that operate
under a great deal of uncertainty. The solutions can be embedded
in operating systems to meet the performance specs in transient
and steady states, such as deadline miss ratio, stability,
overshoot, settling time, and sensitivity requirements.